Geometry of Langlands Duality

The project is broadly directed towards geometry that is expected to underlie various
duality phenomena in mathematics (Langlands program) and physics (Gauge Theory).
One goal is to reconstruct Loop Grassmannians and Mirkovic-Vilonen cycles from the
point of view of Statistical Mechanics, and apply this to constructing two dimensional
loop Grassmannians. Another project is a to establish Langlands duality for categories
of equivariant coherent sheaves on affine Steinberg varieties. A more technical project
is a geometric clarification of the Feigin-Frenkel description of the critical center Finally,
the projects on Quantum Field Theory are on reformulating Costello’s mathematical
formulation of perturbative QFT in terms of flows and a speculation on the relation of
QFT to Grothendiecks function-sheaf dictionary. The most ambitious project attempts
to create geometric for the arithmetic case of Number Theory through a 'stochastic set
theory'.

The project aims towards relating and unifying developments in mathematics and theo-
retical particle physics. The mathematical origin of these developments is the so called
Langlands program which is the modern view on a classical discipline of Number Theory. In time this program incorporated a number of central disciplines of mathematics, starting with Representation Theory, Algebraic Geometry and currently the Homotopy Theory. The relation to physics is a part of the current melting of barriers between mathematics and physics which arose in a period when the two subjects developed separately. The central impact on mathematics in the last quarter century was the import of the ideas from Quantum Field Theory (in particular String Theory), which is the part of physics that studies elementary particles. The proposed work attempts to work in both directions by applying ideas from physics to mathematics and mathematical constructions to physics. It also aims towards deeper understanding of the relation between Quantum Field Theory and Number Theory. The proposal also contains more standard topics within Representation Theory and Langlands Program.